KDI: A Prototype Implementation of a TeraFlop-Class Predictive Space Weather Model

The program, funded under the KDI initiative, will form a multi-disciplinary team to develop an advanced computing and communications technology for the purpose of producing a predictive model of Space Weather. The model will be referred to as the Comprehensive Space Environment Model (CSEM) and will be entirely based on the fundamental physics processes that control space weather. The CSEM will couple models of the solar corona and solar wind with a model of the Earth's magnetosphere. The magnetosphere model will then be coupled to a comprehensive model of the ionosphere and thermosphere. Because the members of the collaboration are located at many different institutions, new techniques for using the Internet to foster collaborations will be used. The program contains a strong education component both for graduate students and undergraduates. In addition, a public outreach effort is included in the program.